CSR: Small: Collaborative Research: Combining Static Analysis and Dynamic Run-time Optimization for Parallel Discrete Event Simulation in Many-Core Environments

Proposal Title: CSR:Small:Collaborative Research: Combining Static Analysis and
Dynamic Run-time Optimization for Parallel Discrete Event
Simulation in Many-Core Environments
Institution: SUNY at Binghamton
Abstract Date: 07/06/09
This project investigates how a new processor paradigm (multi-core architectures)
changes the way Parallel Discrete Event Simulation (PDES) is done. This topic is
important given the wide use of simulation and the emergence of multi-core
architectures. PDES is likely to play an increasingly important role in discrete event
simulation as Moore’s Law is sharply curtailed and explicit parallelism becomes the
major avenue for improving performance of sequential applications. Improving PDES
performance translates to improved.
Discrete Event Simulation (DES) is widely used for performance evaluation in many
application domains. The fine grained nature of PDES causes its performance and
scalability to be limited by communication latency. The emergence of multi-core
architectures and their expected evolution into manycore systems offers potential relief
to PDES and other fine grained parallel applications because the cost of communication
within a chip is dramatically lower than conventional networked communication. Absent
this dominant effect, PDES performance will be determined by issues such as load
balancing, synchronization and optimism control, and the choice and configuration of
various other algorithms and data structures of the simulator. Operation in a manycore
environment introduces new system tradeoffs that must be effectively balanced by the
system software. Primarily, the pressure on the memory system and resilience to load
fluctuations will emerge as critical issues that we address in the proposed research.
Finally, the more predictable nature of communication cost in this environment (due in
part to the more frequent synchronization possible between nearby cores) can be
exploited, especially by static analysis, for effective simulation.
As multi-cores become the default microprocessor architecture, applications that are
performance constrained must evolve to use parallelism to take advantage of the
resources available on the cores. This project’s new PDES can have a significant
impact on a number of applications that rely on discrete event simulations. The PIs plan
to incorporate the research results into a graduate level course on parallel simulation
techniques and to involve undergraduate students in the project.